Mathematical Sciences: Statistical Software and the Human Interface - Symposium

This award will support the 1989 Symposium on the Interface of Computing Science and Statistics to be held April 9-12, 1989 in Orlando, Florida, organized by the Interface Foundation of North America, and hosted by the Department of Statistics of the University of Central Florida. The program will be centered around the theme of "statistical software and the human interface." This conference is a continuation of the Interface Symposium series. This year's program will include a collection of sessions on departmental computing, the future of UNIX, graphics, high dimensional data structures, Bayesian computing, evaluating statistical software, regression diagnostics, quality control and experimental design, vectorization, and many other topics. One of the sessions will focus on the development of young investigators, where new Ph.D.'s will be invited to present their dissertation results as invited papers. The conference will consist of a keynote speech by Professor John Nelder, three parallel invited sessions, and a number of parallel contributed paper sessions.